Directions in Index Theory and Riemannian Geometry

ABSTRACT

DIRECTIONS IN INDEX THEORY AND RIEMANNIAN GEOMETRY

This proposal concerns geometric questions about various
types of spaces, namely smooth Riemannian manifolds, measured
metric spaces, singular spaces and noncommutative spaces.
The questions about smooth Riemannian manifolds concern
curvature conditions, such as when a compact manifold-with-boundary
can admit a metric having nonnegative scalar curvature on the interior
and nonnegative mean curvature on the boundary, and when a closed
manifold can admit a metric with positive p-curvature tensor.
The questions about measured metric spaces concern possible
extensions of the Ricci tensor to such spaces. The
questions about singular spaces concern elliptic analysis.
The questions about noncommutative geometry concern local proofs
of the general foliation index theorem.

As mathematics and physics have evolved, the concept of space has also
evolved. Some evident examples from physics are the evolution from
flat space to curved space, and the evolution from the classical phase
space to the quantum mechanical Hilbert space. There have also been
reasons intrinsic to mathematics that lead one to extend
the notion of space. Of course, one does not want to make arbitrary
definitions, but one rather wants to consider concepts that arise
naturally from real problems.
A more recent notion of space falls under the heading of
``noncommutative geometry'', in which a traditional space is
first considered to be defined in terms of the functions on it, and then
the ring of functions is generalized from the commutative case to allow
for a noncommutative ring of ``functions''. Noncommutative geometry
is rooted in the branch of geometric analysis called index theory.
Sometimes problems about ordinary ``commutative'' spaces, such as
foliations, can be translated into
problems about noncommutative spaces and attacked from that angle.
Many of the questions considered in this
proposal have their roots in physics. Throughout the years there has
been much fruitful interaction between mathematics and physics, and
the proposed work will hopefully contribute to this interaction.
In particular, questions about positive scalar curvature arise in
general relativity theory, and noncommutative geometry touches on many
areas of modern theoretical physics.